Dissertation Research: Acquiring Cultural Values in a Chinese School

This dissertation project will support a PhD student from the University of Pennsylvania to conduct ethnographic research in a Chinese secondary school for 18 months. The study will investigate the Chinese conceptions of reciprocity between generations as they are acted out between teachers and students in the school. This project is valuable because of the key importance of education in Chinese culture. Understanding how values are molded in the Chinese classroom may help us better understand, through comparison, the learning that goes on in our own classrooms.